Collaborative Research: MFAI: Conformality-Guided Learning with Evolving and Heterogeneous Data

Reliable uncertainty estimates are essential for using artificial intelligence systems in high-stakes settings, including health care and electric grid operations. This project develops new methods that help learning systems quantify prediction uncertainty and communicate it through prediction sets that are both valid and useful. The work addresses a central obstacle in modern artificial intelligence: data used to train and calibrate models is often collected from different sources, changes over time, and differs from the data encountered after deployment. By developing learning methods that remain reliable in such settings, the project will advance the scientific foundation for trustworthy artificial intelligence. The results are expected to benefit decision support in organ donor-recipient matching, where unreliable predictions can affect patient outcomes, and electric grid load forecasting, where uncertainty affects planning, reliability, and cost. The project will also contribute to education and workforce development by training graduate, undergraduate, and high school students, developing educational materials on reliable artificial intelligence, and disseminating software and research results to the broader community.

This project studies Conformality-Guided Learning, a framework that uses conformal prediction signals during model training rather than only after training. Conformal prediction is a statistical approach for producing prediction sets with formal coverage guarantees. The project will develop theory and algorithms for three interconnected thrusts. First, it will analyze heterogeneous offline data and develop constrained bilevel learning methods that leverage source data and limited target-domain data to obtain valid, compact prediction sets. Second, it will study online data and develop adaptive algorithms that jointly update predictors and calibration parameters under distribution shift, including methods for subgroup and time-localized reliability. Third, it will develop communication-efficient distributed methods for selected heterogeneous and drifting environments, with a focus on common drift and performative drift. The research will be evaluated on benchmark datasets and targeted case studies in organ transplant decision support and electric grid load forecasting, with an emphasis on core mathematical guarantees, algorithmic prototypes, and software dissemination.